Dissertation Research: A Study of Genetic Variation Using DNA Fingerprinting

Genetic relationships in natural populations of animals and plants are a basic issue in evolutionary biology. Traditional techniques used to study natural populations have often been found inadequate for describing the true genetic variability of populations and the genetic relationships between populations. In the proposed research, the recently developed technique of DNA fingerprinting will be used to investigate the genetic relationships between natural populations of Poecilia latipinna, a small fish occurring along the coastline of the Southeastern U.S. This fish has been partially genetically characterized using other techniques. Data suggest that populations of this species may be more genetically distinct than heretofore determined. DNA fingerprinting should reveal a greater level of differentiation between populations of this fish than has yet been demonstrated. If so, DNA fingerprinting could be a potential tool for other population genetic studies of both a basic and applied nature. If DNA fingerprinting can be shown to be a useful tool for describing natural populations, evolutionary biologists and managers of natural populations will have available to them a relatively simple technique with greater power for detecting genetic relationships than any method previously used.